Improvement of the Cell and Molecular Biology Curriculum at Susquehanna University by the Acquisition of a Fluorescent Microscope

The department is enhancing areas of developmental, cell and molecular biology through the purchase of a fluorescence microscope. A major application of the microscope is localization of proteins within cells using fluorescently labeled antibodies. This will enhance the learning of concepts of differential gene expression. The immunofluorescent localization of proteins in embryos, using specific antibodies, demonstrates the temporal and spatial specificities of gene expression. A second concept, of specificity of subcellular localization of proteins within cells, can also be demonstrated, since the fluorescence microscope allows the localization of different proteins in specific sites within the cell in a dramatic and visual way. The university will contribute an amount equal to the award.